Roundtable on Molecular Biology and Biochemistry of Chemolithotrophs: Applications to Bacterials Leaching; New Orleans, LA; May 26-30, 1992

This Science in Developing Countries award will support a Roundtable on Molecular Biology and Biochemistry of Chemolithotrophs: Applications to Bacterials Leaching, to be held in New Orleans, Louisiana, May 26-30, 1992. The organizers are Moselio Schaechter of the American Society for Microbiology and Emilio Garcia, a Chilean scientist at the Lawrence Livermore National Laboratory, University of California. The Roundtable will bring together scientists from the United States and Latin America to discuss a range of fundamental research topics focusing on chemolithotrophs. Through this award, seven researchers--of whom some are young investigators--from developing countries in Latin America will participate. The Roundtable is expected to benefit both the U.S. and Latin American participants through an exchange of information and the opportunity to develop new ties in collaborative research, leading to further progress in metals production and recovery, a field of commercial importance to all countries involved.